Spaces of Kleinian Groups and Hyperbolic 3-Manifolds

DMS-0234540
Yair N. Minsky

The proposer is co-organizing a workshop at the Newton Institute in
Cambridge, UK, on the subject of ``Spaces of Kleinian groups and
hyperbolic 3-manifolds'', for the summer of 2003. The 4-week
workshop, including a 1-week conference, will bring together
researchers active on a number of foundational topics in the field:
relationships between the analytic, combinatorial and geometric
structure of hyperbolic 3-manifolds; topology of deformation spaces
and the arrangement of their components; classification of hyperbolic
3-manifolds by asymptotic invariants; complex projective structures;
convex hull boundaries; cone manifolds, orbifolds and knot groups; the
combinatorial structure of Teichmuller spaces, mapping class groups,
and spaces of curves on surfaces. Recent years have seen substantial
progress on longstanding foundational conjectures such as the
Bers/Sullivan/Thurston Density Conjecture, Ahlfors' Measure
Conjecture, Thurston's Ending Lamination Conjecture and Marden's
Tameness Conjecture. The time is therefore ripe for a conference on
these topics.

In the study of low-dimensional geometry, topology and dynamics, there
is a remarkable depth of interconnection between fields of
mathematics. Henri Poincare, who studied both celestial dynamics and
complex analysis (among many other things), observed in the 19th
century that the standard round sphere, the setting of classical
analysis and geometry, functioned also as a "horizon at infinity" for
an exotic non-Euclidean geometry that we now call Hyperbolic
Space. Dynamical properties of transformations of the sphere translate
to geometric properties of rigid motions of this space, and give rise
to families of symmetric tilings whose structure we can study by
geometric and topological methods. The properties of these tilings,
and the way in which they change when the tilings are varied through
families (or "parameter spaces"), are still linked to some of the
motivating questions about physical systems of which Poincare was
aware a hundred years ago. Issues such as classification of systems,
mapping out regions of stability and instability, deformation and
bifurcation of families of systems, and probabilistic properties such
as ergodicity, all have significance in both pure and applied
mathematics. In the setting of hyperbolic geometry, recent years have
seen significant progress on these issues, with both theoretical
advances and computational approaches playing a role. This conference
will bring together leading researchers in this area and promising
young mathematicians, to disseminate recent advances and continue work
on open problems.